Research Experiences for Undergraduates (Physics)

The Physics Department at Rensselaer will carry out a REU Site Program for 10 weeks to be held in each summer from 1992 to 94. The aim of the REU projects is to involve 10 undergraduate students, four from Rensselaer and the rest from other institutions in the Northeast and the Atlanta University Center to participate in frontier physics research under the supervision of experienced faculty members. The available projects cover a variety of topics including Astrophysics; Biophysics; Condensed Matter Physics; Optical Physics; Innovative Undergraduate Education; Nuclear Physics. A plan to recruit minority and women students into the program is included. The majority of the students will be recruited from outside Rensselaer.